Conference: Center for Child & Family Research

Abstract

Center for Child & Family Research: A Conference

Laurie Dinnebeil & Chris Bergin

The purpose of this conference is to bring together key personnel from the major universities and service agencies in Northwest Ohio to discuss the feasibility of collaborative research to address the needs of children and families. The conference is specifically targetted to achieving consensus for a research agenda and to solidify plans for creating a research center. Expected outcomes will be a set of research priorities and an implementation plan to move toward establishing research collaboratives and possibly a research center on children and families.